Novel Nonintrusive Combustion and Spray Diagnostic

This Small Business Innovation Research Phase I project covers the development of an innovative tool called resonant holographic interferometric spectroscopy (RHIS) to address the challenges presented in multi-phase combusting environments. The innovation is the development of an instrument capable of simultaneously and quantitatively measuring multi-phase components in combustion based on revolutionary advances in spectroscopic holographic techniques and applications. Implementation of real-time RHIS will allow researchers direct access to quantitative imaging of parameters such as the species concentrations, gas temperature, and particle distribution and size within combusting sprays. Advances in novel photorefractive material enables the instantaneous writing and reading of holographically stored spray and flow field data, thus eliminating the conventional, tedious process of exposing and developing film plates. The relevance is that researchers will have for the first time a user-friendly tool that is capable of real-time, nonintrusive, quantitative, combusting spray imaging.